POSE: Phase II: Transitioning UXarray to a Sustainable Open-Source Ecosystem

Modern weather and Earth system models produce extremely detailed data that help scientists better understand hurricanes, thunderstorms, floods, droughts, heat waves, winter storms, and heavy rainfall. However, the data produced by these models are difficult to analyze using common tools, which slows scientific discovery and forecasting efforts. This project supports the growth of an open and freely available software, called UXarray, that helps researchers and analysts work more easily with complex Earth data. The project builds a broad community of users and developers for UXarray, establishs clear processes for shared decision-making about how the software is developed, and provides training and hands-on learning opportunities. By making advanced data analysis tools easier to use and adopt, this project allows students, researchers, businesses, nonprofits, and government agencies to work with weather and environmental data, supporting innovation, economic growth, and public services.

This project advances an open-source software package that extends Xarray with native support for unstructured computational meshes used in kilometer-scale Earth system models. As these models become increasingly central to weather, climate, land, and ocean research, the lack of foundational analysis tools has emerged as a critical bottleneck. The project focuses on transitioning UXarray into a sustainable open-source ecosystem through coordinated efforts in community building, governance, and contributor support. Activities include expanding outreach and training, establishing a community-led governance model, strengthening development infrastructure, and fostering a distributed network of contributors. The project will also evaluate emerging approaches for user onboarding and documentation, including conversational interfaces. Outcomes include a robust and sustainable software ecosystem, documented lessons for building community-led scientific software, and a scalable foundation for future research using unstructured grid data.